NSF-PI Conference 2000

The Principle Investigators of this proposal propose to organize a PI meeting for the Networking Research Programs (Networking Research Program and Special Projects in Networking) in the ANIR Division of NSF. The PI meeting will be held over a two-day period in addition to an opening night reception. The reception will be Wednesday evening, November 1, 2000 with two full days of technical sessions, Thursday, November 2, and Friday, November 3. The PI meeting will facilitate the exchange of research ideas among the PIs with active NSF awards from the Networking Research Programs and NSF program directors.